A Cognitive-Based Approach To Introductory Computer Science Courses

9455522 Feinstein A cognitive based approach is used to develop comprehensive materials for the first courses in Computer Science based on Implementation D of Computing Curricula 1991. The distinguishing features are: (1) materials based on a strategic sequencing and the associated level of mastery of key topics, (2) a topical coverage carefully based on a spiral approach to information presentation, (3) an integral use of structured labs as a necessary component, (4) an emphasis on frequent feedback to facilitate learning and evaluate the effectiveness of instruction, (5) remediation materials for students requiring additional assistance to meet the required levels of mastery ,(6) an early use of teams, (7) a student surveying tool used to track all students to provide outcome assessment, and (8) review and evaluation by multiple institutions for iterative material refinement and national dissemination. The project will be carefully evaluated by a team of eight consultants with expertise in the fields of computing, computing education and educational psychology. The materials developed will also be critiqued by professionals at a wide variety of other institutions for their input as to the applicability of the materials to students at their institutions. The resulting materials will be made available in hard copy and through electronic media.